Thermal Noise in Test Masses and Suspensions for Gravitational Wave Interferometers

According to the Fluctuation-Dissipation Theorem, thermal noise arises from any mechanism that dissipates mechanical energy. This means that a gravitational wave interferometer test mass and its suspension will work better, the lower is the level of dissipation. The Syracuse group will carry out studies of various test mass and suspension designs, characterizing them by their dissipation levels. One means of doing this is to measure the quality factors of the various mechanical resonances in the system. A novel method, newly developed by the Syracuse group, involves careful measurement of the response of the system after a steady stress has been released. Both methods will be employed in the search for the best ways to build and suspend test masses for LIGO. In order for the search for gravitational waves to succeed, it is necessary that detectors be free from disturbing influences that can mimic or mask the weak gravitational wave signal. Thermal noise, also known as Brownian motion, is among the noise sources most in need of reduction. The aim of the research program of the Syracuse University group is to understand the sources of thermal noise in interferometric detectors of gravitational waves (such as those of the LIGO Project), and to thereby learn ways of minimizing its strength. In addition to its main goal of improving the performance of LIGO and other gravitational wave detectors, this work may stimulate progress in understanding the structure of noncrystalline solids, such as the fused silica from which test masses are made.